Physics-Informed Foundation Models for Multi-Scale Chemical Design: From Reaction Optimization to Macromolecules

Dr. Seonah Kim of the Department of Chemistry at Colorado State University is supported to develop interpretable, physics-informed artificial intelligence (AI) and machine learning (ML) frameworks for predictive chemical design spanning reaction optimization, biocatalysis, and macromolecular engineering. This project directly advances NSF's priority area of AI and ML by constructing the next generation of chemically intelligent AI models that go beyond black-box prediction: the developed models will embed physical laws, reaction mechanisms, and molecular interactions directly into their architecture, enabling reliable and explainable predictions across diverse chemical systems. Dr. Kim and her research group will develop unified, mechanism-aware graph neural network (GNN) architectures for high-throughput reaction condition optimization, biocatalyst property prediction, and macromolecular co-design. This AI-driven research will accelerate the discovery of pharmaceuticals, sustainable materials, and industrial catalysts by dramatically reducing costly experimental trial-and-error and will deliver open-source ML tools freely available to the broader scientific community. The project will also provide graduate and undergraduate students with interdisciplinary training at the interface of physical chemistry, cheminformatics, and machine learning, with opportunities for outreach, coding camps, and connections with national laboratory and industrial partners.

Dr. Seonah Kim and her research group will develop a unified, physics-based ML framework that links reacting mixtures, polymers, and biocatalysts into a single, generalizable platform for chemical design. By embedding mechanistic information, intermolecular interactions, and reaction conditions into mechanism-aware graph-based models (MaGNN), the project moves beyond narrow, per-task architectures toward representations that extrapolate under distribution shift and support multi-objective optimization. In Aim 1, Dr. Kim will develop a novel GNN that integrates reaction mechanisms via dynamic node connections (catalyst, solvent, ligand) to predict minimal-tuning yields and selectivities across diverse organic reactions, coupled with uncertainty-aware closed-loop Bayesian optimization for high-throughput experimentation. In Aim 2, a lightweight foundation model will map 3D protein structures to electrostatic embeddings, enabling rapid fine-tuning of biophysical properties, permeability, binding affinity, and stability, for biocatalyst design. In Aim 3, multicomponent GNNs incorporating a novel bilinear mixing strategy will guide multi-objective inverse design of block copolymers and crosslinked systems. All models and databases will be released as open-source tools, and students will be trained through workshops, coding camps, and internships.